CRI: Computing Support for the Next Generation Application-driven Declarative Programming Systems

Abstract
Proposal: CNS 0454066
PI: Enrico Pontelli
Institution: New Mexico State University
Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: CRI: Computing Support for the Next Generation Application-driven Declarative Programming Systems

The PI's will acquire a Beowulf cluster to support research in Logic Programming, particular a new effort in Answer Set Programming (ASP). ASP addresses needs for constraint programming and non-monotonic reasoning that are not present in traditional logic programming. These needs arise in world situations in which knowledge of the world changes such that prior true statements become false - violating monotonic properties of traditional logic programming. The research to be performed will include research on scalable and transparent methods to exploit parallelism, research on reasoning in complex environments such as those expressing sensing and actuation or actions with time constraints, and development of a domain specific workbench to support the design data oriented processes in evolutionary biology, such as phylogenetic inference. The infrastructure will support research and education at New Mexico State University, a minority serving institution.